Nuclear Age Education

This is a three year program which provides middle school and high school teachers with accurate and balanced information about nuclear age issues. The project takes an interdisciplinary approach using faculty from the disciplines of physics, education and social science. In each of the three summers 40 teachers will take an intensive three-week course covering scientific and technical content material specific to the nuclear age. In addition to learning the content teachers will prepare materials for use in the schools. Emphasis will be placed upon development of interdisciplinary school materials. Funds provide for follow up activities which include a three day workshop in the spring following the summer program. Successful curriculum materials will be presented and discussed by the workshop participants. A curriculum guide based upon these discussions will be disseminated to all participants. The National Science Foundation is supporting this program in collaboration with the University of California, Davis, the Institute of Global Conflict and Cooperation (IGCC), and the Lawrence Livermore National Laboratory (LLNL). The NSF portion of the project is $271,918 which is matched with $283,271 from other sources. Thus the match is approximately 104% of the NSF funds.